The Influence of Discourse-Level Information on the Processing of Upcoming Words

In the past few years, the way in which simple word and sentence contexts influence the processing of upcoming words during reading has come increasingly to be understood. However, more needs to be understood about the way in which these fairly local context effects are interrelated and combined with other information from paragraphs. This research is designed to elucidate how readers combine distant paragraph information with local sentence information in reading upcoming words in text. Specifically, the research will examine potential changes that may occur in word reading when expectations for particular words derived on the basis of local sentence information are contradicted by information embedded more distantly in the paragraph. The research will address several points: First, it will clarify whether paragraph information is continuallly combined with local information or whether effects from distant sources operate independently from local sources in the processing of upcoming words in text. Second, the research will examine the degree to which the predictability of local information affects how that distant information is used in reading words. Last, the research will assess whether this distant information has its influence at the point at which the upcoming word is recognized or only later when the meaning of the word is integrated with the meaning of the text. The information gained from this work will be useful in the development of guidelines for designing highly readable texts.